Analysis of Institutional Response to the Taiwan 921 EarthquakeTaiwan 921 Earthquake

CMS-0085056
Prater

This study focuses on governmental and institutional response to the 9/21 Earthquake in Taiwan that occurred in September of 1998, leaving almost 2,500 people dead and many thousands injured and homeless. A major issue in disaster studies is the capacity of local governments to respond to a major disaster and the relationships between local governments and the national governments. Data will be collected from interviews with local and national government officials as well as members of NGOs and other private sector responders to the 9/21 earthquake. These data will be used to extend our understanding of intergovernmental relations after disasters.